Mathematical Sciences: View Factor Applications in Computer Graphics

The objective of the proposed work is to apply radiation transport methods developed to study controlled fusion to simulate the reflection of light in computer graphics. View factor methods have recently been applied to the study of time dependent radiation transport in enclosures at KMS Fusion Inc. The techniques used in such codes parallel to a surprising degree developments in the field of computer graphics, where view factor methods have been independently applied to obtain realistic images. It is proposed that view factor techniques developed to study radiation transport be "transplanted" to the field of computer graphics. This mating of radiation transport theory with computer graphics will help provide images of unprecedented quality.